Theory and Simulations of Type II Irregularities in the Equatorial Electrojet

Investigators have demonstrated the nonlinear evolution of gradient-drift instabilities account for principal features of type-II irregularities in the daytime equatorial electrojet. They are now conducting a comprehensive research program for structures in both daytime and nighttime. Specifically, investigators are: (1) thoroughly exploring the linear instability spectrum, and resulting two dimensional turbulence resulting from these instabilities nonlinear growth; (2) using measured density and electric field profiles; (3) clarifying the role of short-wavelength instabilities in the presence of dominant kilometer-scale structures; and (4) comparing several key aspects of observations with the high-resolution, full Doppler spectra of electron velocities obtained from Jicamarca.